Remote Sensing and Geographic Information Systems Instructions for Undergraduate Students

This project enhances the quality of undergraduate teaching in Remote Sensing and Geographic Information Systems (GIS) by increasing the number of computer workstations. There were several deficiencies in teaching these courses with a single workstation connected to various expensive peripherals. The department could not use the university's IBM or VAX mainframes because of the specialized configuration and display needs associated with image processing and geographic information systems. The major equipment acquired in this project is connected to the existing computer and peripherals, through a Local Area Network, (LAN). The LAN accomodates more students and permits more complicated image processing and GIS analyses procedures than waiting in line to access the one and only workstation. This project is significant since it provides an opportunity for students from various fields to learn state-of-the-art applied technologies. The institution is matching the NSF grant with an equal amount of funds.